Engineering Research Center for Systems Research

The Systems Research Center, an Engineering research Center at the University of Maryland and Harvard University is pursuing theoretical and experimental studies and educational programs in systems aspects of manufacturing, communications and signal processing, chemical process systems, intelligent servomechanisms, and expert systems and parallel computer architectures. New approaches to optimization-based design of engineering systems have been developed in the intelligent servomechanisms area, and these have been found useful in several of the other thrust areas. In the coming period, the Center will build on its significant accomplishments in each of these areas, and will continue the process of integration of project efforts across all of the research areas. This action is a five-year renewal.